US China Symposium/Workshop on Recent Developments and Future Trends of Computational Mechanics in Structural Engineering (Beijing, China; September 24-28, 1991)

The main objectives of the proposed Symposium/Workshop are: 1) to stress the current state of knowledge and practice in computational mechanics in structural engineering and to identify the frontal joint research opportunities necessary to advance the current state of knowledge; 2) to stimulate future cooperative research and development in the areas of common needs and greatest importance; 3) to evaluate the results of chinese research programs on computational structural mechanics and their practical applications in the U.S.; and 4) to continue to build the existing long-term bilateral scientific relationship between academic and practicing communities.